Selective Removal and Surface Instabilities in Dealloying Processes

The proposed work has the objective of obtaining a detailed understanding of selective removal (SR) of a component from an alloy. Model systems (e.g., Cu-Au) and commercially important systems (e.g., Cu-Ni) will be studied over a range of temperatures in both gaseous and aqueous environments. Atom probe-field ion microscopy (AP-FIM) will be used to study the initial stage of the SR process in metal/gas systems at elevated temperatures. Scanning tunneling microscopy will be used to make insitu studies of SR reactions at the atomic scale.